Geotechnical Test Simulator

This award provides funding for a three year project at Clarkson University for a Combined Research-Curriculum Development program entitled, "Geotechnical Test Simulator," under the direction of Dr. Dayakar Penumadu. This project is a collaborative effort between Clarkson University and Georgia Institute of Technology. The objective of the proposal is to develop virtual laboratory experiments and use computer simulations (in addition to the existing limited laboratory exposure), to complement and extend conventional components of the education process. This laboratory simulator will have an immediate nationwide impact on the course(s) related to geotechnical engineering which are usually required for all graduating Civil and Environmental Engineering (CEE) majors and can be easily extended and implemented in different related branches of engineering education (e.g. Geology, Structural Engineering, Hydraulics Engineering, Environmental Engineering etc.).